Conference on Mechanisms of Gene Regulation and Development,Arolla, Switzerland August 14-21, 1988

"The Conference on Mechanisms of Gene Regulation and Development" will be held in Arolla, Switzerland, August 14 through August 21, 1988. This meeting will bring together scientists working with different approaches in an environment conducive to discussions between scientists at all levels of their professional careers.